EPNES: Collaborative Research: Dynamical Models in Fault-Tolerant Operation and Control of Energy Processing Systems

0224729
Hadjicostis

The main goal of this research project is to develop a comprehensive
framework for dynamical state estimation, fault detection and fault
accommodation in energy processing systems. Such systems include
terrestrial and autonomous power systems, electric drives and power
electronic systems, and can be found in both civilian and military
sectors.

The PI's approach is based on a family of experimentally verifiable and
mutually consistent dynamic models, with various family members being
suitable for different tasks in analysis, fault management and
control. In addition to exploring hierarchical and distributed
architectures for monitoring and accommodating for faults in energy processing
systems, he will also study simulation environments in which multiple
models with embedded redundant dynamics are used to detect
inconsistencies, and to initiate more detailed simulations to resolve
them. He will also study economic and environmental aspects of fault
tolerance in energy processing systems.